Theoretical Issues in VLSI Computation and Layout

This research program builds upon ongoing research in VLSI computation and layout theory. Upper bounds of VLSI computing networks laid out according to the rules of the VLSI model will be developed. Outstanding open problems--such as area-time optimal networks for integer division and graph problems--will be investigated and the power of'hybridization' of basic networks will be explored. Specifically, it appears that a few highly regular inter connections such as the linear array, the mesh, the tree and its relatives, the cube and its substitutes, have greatcomputational power and are likely to be the basic constituents of anysignificant VLSI architecture. Efficient techniques for the automation of VLSI designs will be developed; the wire routing problem, and the moduleplacement problem will be addressed. Some restricted cases of channel routing problem of multiterminal nets will be studied, particularly the specialized problem obtained by placing a bound on the maximum number of terminals of a net. Routing techniques in arbitrary planar domains will also be developed.